Nuclear Reactions at Intermediate Energy (Physics)

Theoretical investigations will be undertaken concerning the character of the fragmentation phase transition of nuclear matter and to determine the parameters of the nuclear equation of state from the study of the decay products of medium to high energy heavy ion collisions. The work will utilize a new phenomenological model based on bond percolation theory designed for the study of the nuclear fragmentation phase transition, also recently developed techniques which describe heavy ion collisions via a nuclear transport theory which incorporates one- and two-body effects. In cooperation with experimental heavy ion physicists one will attempt to define more meaningful observables for the study of the time history, impact parameter selection, degree of equilibration, and phase space geometry in heavy ion reactions.